The Greater Chicago Consortium for Chemistry Reform

9450684 Wink The faculty in the department of chemistry at Chicago State University (CSU), William Rainey Harper College (HC) and the University of Illinois at Chicago (UIC) will join in a consortium to create, share, and evaluate curriculum changes in chemistry and related areas. Their efforts build upon networks already established for the purposes of curriculum reform. This new Consortium will create versatile, multi-faceted, and well-tested options for implementation at peer institutions. Each institution is responsible for the independent generation of one or more comprehensive curricula that will be implemented on their campus and later on the campus of one of the other Consortia members. CSU faculty will initially focus on a two-year combined physical sciences and mathematics program. HC faculty will initially focus on a two-year combined physical sciences and mathematics program. HC faculty will address both the general and organic sequences and non-major courses. UIC faculty will work on projects related to introductory chemistry, chemistry for engineers, and upper division courses. The personnel will also collaborate from the inception of the program on two inter-campus projects, The Data Project and The Chemistry Hook, designed to create a general set of materials to introduce research and life-related examples into chemistry courses. An annual symposium on science education issues will also be sponsored by the Consortium. ***y